Doctoral Consortium Support for International Conference on Automated Planning and Scheduling

This award gives travel, housing, and registration-cost support to selected doctoral students from U.S. universities for their participation in the Doctoral Consortium of the 18th International Conference on Automated Planning and Scheduling (ICAPS-08) held September 14-18 in Sydney, Australia. ICAPS is the premier conference for research in artificial intelligence planning and scheduling, with relevance to a wide variety of applications such as software engineering, manufacturing, transportation, and robotics. The ICAPS-08 Doctoral Consortium includes a poster session, where students present their research, and a mentoring program that pairs senior scientists with doctoral students.